Non-commutative Lp-spaces and their Connection to Probability and Operator Spaces

Abstract
Junge

The aim of this research is the investigation of the following
different aspects of non-commutative spaces of p-integrable
functions. If p is 1 such a space is the predual of von Neumann
algebra and reflects important properties of the underlying
operator algebra. We recall, that it is still open whether
preduals of von Neumann are finitely represented in the space of
trace class operators. Here, we focus on isometric characterization
of finite dimensional spaces embedding into the predual of a von
Neumann algebra and its connection to the theory of Lie-algebras
and (non-commutative) stochastical processes. The investigation of
the latter uses martingale inequalities based on recent progress
by Pisier and Xu. We are interested in the non-commutative version
of the Rosenthal/Burkholder inequality and Doob's maximal inequality.
Maximal inequalities are also known as a useful tool in (stochastical)
analysis. The more recent theory of operator spaces delivers the
right framework for these investigations and reveals surprising
properties of the non-commutative space of p-integrable functions
associated to free groups.

Non-commutative probability provides one possible framework
for the probabilistic viewpoint in quantum mechanics. This theory
combines fundamental concepts of algebraic nature with analytic
insight and methods with roots in calculus. The non-commutative
analogue for the spaces of p-integrable functions has a long
tradition in the theory of operator algebras and provides a
fruitful framework for understanding classical tools in
probability. It is most challenging to reveal or overcome
substantial differences between the commutative and non-
commutative theory. This area enables the interaction between
different streams inside the mathematical community and
mathematical physics. This kind of interaction is one of the most
important resources for new development in mathematics